Adaptive Subspace Algorithms with Biomedical and Array Processing Applications

This research focuses on the problem of tracking time varying subspaces to model nonstationary vector time series. A principal objective is to characterize the tracking properties and steady state performance of the non-iterative Spherical Subspace (SS) tracker and associated Spherical Subspace Recursive Total Least Squares (SS-RTLS) adaptive filter. This will be done using a statistical model derived from the general theory of stochastic recursive algorithms. The non-iterative spherical updating concept will be extended to develop an adaptive and non-iterative eigenstructure tracker. Moreover, a generalized subspace tracking method will be developed to optimally track the signal subspace in the presence of colored noise. Additionally, a matrix pencil tracking algorithm will be developed to reduce the computation associated with certain tracking problems. These methods will be applied to a vast data base of multichannel biomedical data consisting of synchronous electromyographic, kinematic, aerodynamic, and acoustic data in order to model the speech production process. The biomedical work will be done in collaboration with an otolarynngology medical research team at the University of Texas Southwestern Medical Center at Dallas. Other methods will be used to develop vocal tract signal analysis tools that model and discriminate between different types of speech disorders. The adaptive subspace algorithms will also be applied to direction-of-arrival problems using data from a recently deployed experimental array of microphones.